Real-Time Dynamics in Clusters and at High Pressures

The primary objectives of this research is to: (a) study femtosecond real-time dynamics in clusters, (b) examine molecular interactions under high pressures, and (c) develop techniques for probing the primary processes, involving coherence and relaxation, in complex systems. The ultimate goal is to learn about forces governing the transition to the condensed phase limit.